SBIR Phase II: Gamma Camera Design and Studies for Intraoperative Imaging

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is a novel intraoperative gamma camera technology platform, enabling real-time imaging of radiotracers used for operative diagnostics. This imaging technology platform provides a compact highly sensitive and specific nuclear imaging device with broad applications. The platform also offers promise for intraoperative guidance during bypass, grafting, and resection procedures.

This Small Business Innovation Research Phase II project will complete research and development of a new gamma emission based nuclear medical imaging system optimized for intra-operative imaging. This will include design and user validation studies, design and development studies that ensure the components of the imaging system meet all relevant mechanical and relevant safety regulations and requirements, and an initial study with the final prototype camera design to provide an evaluation of its efficacy. A successful outcome of this project will produce a first of its kind prototype intra-operative imager with evidence of practical use.